CRIF: Acquisition of a 400 MHz NMR Spectrometer for Research and Education

With support from the Chemistry Research Instrumentation and Facilities - Multiuser Instrument Acquisition (CRIF-MU) Program, the Department of Chemistry at the University of Memphis will acquire a 400 MHz nuclear magnetic resonance (NMR) Spectrometer. This equipment will enable researchers to carry out studies on organometallic complexes containing low receptivity metals; nanomaterials; and peptides.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in materials chemistry and biochemistry.